Politics, Cloth, and Andean Identity in 19th and 20th Century Bolivia

This project will allow a cultural anthropologist to study the political and economic significance of Andean ethnic cloth. In much of the developing world local communities define their identity with respect to other communities and the national state by, in part, the production and wearing of locally-specific traditionally-designed clothing. The project will involve participant observation, field surveys, archival research and time allocation studies of the production, consumption and marketing of this cloth in several communities in highland Bolivia. The project will test the hypothesis that the Indian peasants' investment of labor in cloth production allowed them to maintain a relatively independent economic identity in the face of international and national market penetration of their communities. This research is important because the phenomenon of indigenous cloth which marks local ethnic identity is widespread, and understanding of the function of cloth production and consumption will help us understand how such poor communities can develop yet maintain their ethnic identity.